PFI-TT: Cell Culture System with Enzyme-based Control of Oxygen Concentration to Enhance Biomedical Research

The broader impact/commercial potential of this Partnerships for Innovation - Technology Translation (PFI-TT) project is to enhance biomedical research by controlling oxygen in cell culture. Cell culture, in which scientists attempt to grow cells in conditions like those in the body, is one of the most useful techniques in biomedical research. However, oxygen, a critical factor for cell behavior and physiology, is not controlled during standard cell cultures. In fact, cells in laboratory cell culture experience up to 50-fold higher oxygen concentrations than they do in the body. By changing the status quo of cell culture from non-oxygen-controlled to oxygen-controlled, the proposed technology can advance the scientific understanding of oxygen’s role in disease development, biological processes, and human tissues. In addition, the technology can improve human health by (i) fueling the discovery of new drugs and drug targets, (ii) improving the accuracy of the drug screening process, reducing the attrition rate, cost and time spent on failed drugs, and (iii) accelerating the commercialization of cell-based therapies for cancer treatment and regenerative medicine.

The proposed project will develop the Oxygen-Controlling Cell Culture (OCC) system, an enzyme-based approach adaptable to the vessels already in use for cell culture. Unlike current oxygen-controlling products that function by reducing oxygen in the gas phase surrounding cell culture vessels, the OCC system takes an innovative approach by harnessing enzymes to locally control oxygen concentration directly in the cellular environment. This approach improves data accuracy, consistency, and reproducibility. The OCC system will be developed by testing a number of strategies to chemically attach enzymes to cell culture vessels. The oxygen concentration will be tuned to specific values by controlling the enzymatic depletion rates and oxygen transfer rates within the vessels. System performance will be validated by examining the impact on stem cells and cancer cell behavior and physiology. Through this proposal, it is anticipated that an OCC system prototype will be ready for the next stage of commercialization.